Kinematics and Mechanisms of Sonation in Birds

Kinematics and Mechanisms of Sonation in Birds

This project will explore how body shape and behavior co-evolve in
animals, by examining how birds produce special communicative wing-
sounds, or sonations. One group of birds from the tropics, the
Pipridae, produces particularly extreme and diverse sonations.
Nearly a dozen species of piprids will be examined to better
understand how their wings produce sound. High-speed video will be
used to determine the limb motions used during sound production.
Experimental manipulation of specialized feathers will be used to
determine how the feather "instruments" are employed to produce a
unique sustained, harmonically-toned sound. Digitally-aided
dissections and CT scans of museum specimens will be used to model
how changes in the shapes and sizes of wing bones and muscles have
influenced how the wing functions. Because the relationships among
the examined species are known, and because appropriate variation
exists among these species, this information will be useful in
determining the sequence of events that lead to the evolution of this
specialized system of communication.

The intellectual merits of this research come from generating new
data on a poorly studied phenomenon, generating state-of-the-art
kinematic data from field subjects, lending insight to avian wing
function, generating functional hypotheses testable by
macroevolutionary tests, and addressing Tinbergen's "origin and
transformation" question by examining the interplay between the
evolution of behavior and morphology.

The impacts of this research will be made through
training students, introducing Latin American communities to the
principles behind this research, and the production of a high-quality
video documentary for distribution to museums nationwide.